Modeling and Statistical Analysis of Mental Test Data

Modeling and Statistical Analysis of Mental Test Data William Stout University of Illinois Abstract This research involves the probabilistic modeling and statistical analysis of multiple question(item) mental test data. The investigator has in the past used the nonparametric item response theory(IRT) paradigm to study test fairness, the statistical assessment of complex latent IRT structures, and the cognitive process/psychometric modeling and cognitive diagnosis of test taking examinees using the investigator co-developed Unified Cognitive Model. Now, it is proposed to develop a nonparametric item level geometric description of the item structure analogous to the classical subtest score level factor analytic approach. It is planned to develop a practical operational cognitive testing procedures based on the Unified model. It is proposed to further develop the test bias procedure, SIBTEST, in various much needed ways. A practical need cutting across all three areas is forour nonparametric procedures to be modified to match on liklihood based latent ability estimates as well as on their currently used number correct scores. The research involves developing mathematical models and statistical procedures to improve standardized and classroom tests and to improve the measurement of examinee performance on such tests. There is a special emphasis on providing an educationally useful concept mastery profile for each examinee based upon his/her individual test question responses, on providing fairer tests, and on assessing the substantive complexity of skills required for performing well on a test. In particular, it is desired to (i) provide for each item a description of what it measures best, (ii) to produce fairer tests -- in particular by informing the construction specifications of future tests about biased item types that should be excluded, and (iii) to provide for educators detail ed feedback of concept mastery and nonmastery for each individual examinee to be used to guide further instruction and remedial efforts. Because standardized tests are ever more ubiquitous in American society and noting their gatekeeper role, the above work, if successful, should have a major impact on how effective standardized tests in America are and indeed could improve the educational process in the classroom.